Mathematical Sciences: Eigensystem Computations

Watkins The investigator studies improved algorithms that are suitable for high-performance parallel computing for solving eigenvalue and invariant subspace problems. New parallelizable formulations of the QR algorithm are investigated through both numerical experiments and theoretical analysis. New shift strategies that allow many iterations to proceed at once are implemented, and the process of propagation of shifts in iterations of the QR algorithm is studied in detail. An additional aim is to study the relationships between various eigensystem algorithms, the related areas of classical real analysis and approximation theory, and applications in signal processing and control. The point of this activity is to clarify and unify the theory. Eigensystem computations --- the calculation of eigenvalues and invariant subspaces of matrices --- lie at the heart of numerous problems in diverse areas, including vibrations and stability of structures (buildings, bridges, aircraft, etc.), control systems of all types (robots, factories, automobiles, aircraft), and signal processing (communications, seismic oil exploration). It is therefore vital to have at hand a variety of reliable, efficient methods for computing eigensystems. The aim of this project is to study and develop new computational methods for analyzing eigensystems. The high-performance computers of today and the near future are organized very differently from older computers and require that new methods be devised and old methods be reorganized to make efficient use of the processing power of the new machines. The investigator studies and develops suitable methods. An additional aim is to organize and unify the theory behind eigensystem computations for the benefit of the computational scientists and engineers of tomorrow.